Nature of Quantum Localization Probed by Exciton Dynamics in II-VI Semiconductor Alloys

9408816 Lin Technical abstract: It is proposed to investigate the nature of Anderson localization in II-VI semiconductor alloys. In the alloys the lifetime of a photogenerated electron-hole pair, or exciton, near the mobility edge is directly correlated to its localization length. Thus the exciton system in these materials represents a model system for studying quantum localization. The dynamics of exciton localization will be probed by time resolved photoluminescence spectroscopy. The exciton localization length, mobility edge, and the critical exponent of the localization length will be measured under different conditions including temperature and the degree of alloy disorder. The universality of the critical exponent and the fundamental differences between charge carrier localization and exciton localization will be investigated. These studies can provide new insight into the physics quantum localization. Non-technical abstract: Disorder in solids can cause a remarkable effect that is the spatial localization of electronic charge, which is called Anderson localization. Since dome degree of disorder is a nearly universal feature of real materials, the Anderson localization is likewise a ubiquitous ingredient in determining electrical, optical, and other physical properties of condensed matter. Therefore, Anderson localization is recognized as one of the most important subjects in condensed matter physics. This proposed research is to study the properties of Anderson localization in certain semiconductor alloys (containing elements from groups II and VI of the periodic table) which have important applications in optoelectronic devices. ***